CISE Research Infrastructure: High Performance Infrastructure for Computational Science

9502956 Schnabel This award provides support for high-speed networking equipment, high-performance multiprocessor workstation servers. a high-speed disk array, and multimedia devices for collaboration, exposition and visualization. The University of Colorado department of Computer Science will be addressing issues of data movement in Grand Challenge and National Information Infrastructure (NII) applications. This in conjunction with the floating point needs of Grand Challenge computations, leads to their request for high-speed computation and communication infrastructure. The research associated with the infrastructure falls into four inter-related projects in the area of scientific computing, distributed systems, and resource discovery. These four projects are data movement in Grand Challenge computing, global optimization algorithms for molecular configuration problems, compiler-assisted network runtime systems, and resource discovery and information sharing.